Exploration of the Earliest Crust Forming Events on Earth

This proposed work uses new instrumental techniques to measure daughter radionuclides of short-lived and naturally extinct radioactive isotopes of Samarium (Sm) and Hafnium (Hf) to understand formation of the Earth’s early continental crust. The work will examine 4.4 billion-year-old components contained within 3.8-4 billion-year-old host rocks and zircon minerals of the Acasta Gneiss Complex in the Slave Craton of northern Canada, the oldest known body of rock on Earth. Understanding of the formation of the early Earth has broad implications for the breadth of Earth Sciences, ranging from inferring the origin of life to understanding the formation of economic mineral deposits, especially those originating only in older Earth crust or mantle (such as the diamond deposits in northern Canada). When Earth differentiation led to the formation of continental crust is a fundamental problem in understanding planetary evolution of the highest order. The work would primarily be done by a promising, early-career post-doc under the mentorship of the two PI’s at an institution renowned for both analytical innovation and excellence as well as the training of young geochemists who have typically go on to highly productive careers.